RUI: Central Projections of the Octavolateralis System

9309977 McCormick The diverse and very large vertebrate group of bony fishes have an inner ear used for hearing. Behavioral studies show that species have different capabilities for hearing underwater sound, sometimes correlated with peripheral structural specializations such as an acoustic connection from the swimbladder. Recent work in neuroanatomy has shown that there also are specializations in the cellular populations, called nuclei, in auditory centers in the brains of some fish species that hear very well; brains of some fish considered to have more primitive auditory systems lack these specializations. This project uses neuroanatomical techniques to trace the pathways of nerve fibers from the individual inner ear sensory organs to these central nuclei, and to clarify the detailed structure of these nuclei, in species chosen to represent particular generalized versus specialized features of anatomy or behavior. The results will determine how the central nervous system components for hearing are organized differently between specialists and generalists. This work provides important groundwork influencing future physiological, behavioral, and theoretical work on hearing in fish and on underwater sound reception. It has educational impact in strongly involving undergraduate students directly in research. In addition, it will have impact on studies of biodiversity by directly addressing the variation of vertebrate hearing mechanisms, and on studies of evolution of hearing in the vertebrates. ***